Travel Support for International Conference on Distributed Computing Systems (ICDCS) 2011

This project will support students to attend the International conference on distributed systems (ICDCS) to be held in Minneapolis, MN in June 2011. ICDCS is a premier conference in distributed systems area and it is important to expose students to this conference. The students will be chosen based on a open competition and preference will be given to students without support and those that belong to underrepresented groups.